CAREER: Studies of Two-Electron Photo-Reagents

Dr. William B. Connick, Department of Chemistry, University of Cincinnat, is supported by the Inorganic, Bioinorganic and Organometallic Chemistry program of the Division of Chemistry, National Science Foundation, for his work under a CAREER Award to elucidate the factors governing multielectron transfer reactions. Metal complexes will be prepared that undergo two-electron transfer reactions. Using time-resolved methods, kinetic data will be obtained to provide firm mechanistic information for verification of existing models of multielectron transfer.

The educational component of this endeavor involves the development of a chemistry course for grade 7-12 high school teachers and an undergraduate laboratory experiment using a research laser facility; thereby, exposing a large number of senior undergraduates to a research setting.